Training Faculty in the Development of Electronic Multimedia Courseware

9353931 Thomas This project offers four training workshops, over a two year period, designed to teach the basic skills needed to create multimedia courseware. Workshops will be offered by the Engineering multimedia Research Laboratory (EMRL) at Cornell University. The use of electronic multimedia courseware in teaching undergraduate engineering is worthwhile for both students and instructors. However, instructors often perceive the time needed to create courseware modules as too great. This project intends to change this perception. Pedological, content, and technical issues will be addressed and to simplify the authoring process, the EMRL will create templates and utilities for use by the participants. Follow-up support will be available over the Internet, and an archive of the courseware modules created during the workshops will maintained by the EMRL. ***